Acquisition of a High Resolution Inductively Coupled Plasma Mass Spectrometer for Research in Chemistry, Environmental Sciences, Earth Sciences and Forensic Sciences

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Florida International University will purchase an inductively coupled plasma mass spectrometer (ICP-MS). This equipment will enhance research in a number of areas including 1) optimization of analysis protocols for materials such as glass and polymer surfaces; 2) applications of ICP-MS in the areas of trace elements and organometallics in biological and environmental systems; 3) characterization of sulfur sources in ore-forming systems; 4) in-situ measurement of uranium and lead in metamorphic and igneous zircons; and 5) measurement of major and trace element concentrations in minerals and natural glasses in igeous rocks.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. This instrument will be used in advanced biochemistry and instrumental undergraduate courses as well as undergraduate, graduate and post-doctoral research. In addition, these studies will have a significant impact in the earth sciences.